Computations of Interface Dynamics in Fluids and Materials

The investigator studies a variety of problems concerning
interface dynamics in fluids and materials. The problems are 1)
control of droplet formation and 2) microstructral evolution in
anisotropic and inhomogeneous elastic media. He brings together
physical experiments, modeling, mathematical and numerical
analysis, and large-scale scientific computations to study
certain fundamental problems related to interface motion, such as
interfacial pinch-off and evolutions of interfaces in
three-dimensional systems. One of the major goals is to develop
and apply start-of-the-art computational tools with emphasis on
utilizing adaptive methods and parallel computing, and designing
robust numerical methods for integro-differential equations
involving multiple physical effects with multiple spatial and
temporal scales.
The investigator studies some fundamental problems related
to multiphase phenomenon in physical systems. In particular, he
develops mathematical models and performs large-scale
computations to investigate diffusional evolution of
microstructure in solid/solid phase transitions and control of
droplet formation in a fluid/fluid system. Many structural
metals, such as steels, aluminum alloys and superalloys, are
products of solid-state diffusional transformations. The
multi-phase microstructure resulting from such transformations is
a key variable in setting the macroscopic mechanical properties
such as stiffness, strength and toughness of the alloy. A goal of
this study is to model and simulate the process of microstructure
evolution through mathematics and computations, and eventually to
provide engineers information on how to generate different
microstructures with desirable material properties. The
investigation of droplets concerns how to control the formation
of drops of many sizes (frequently referred to as satellite
drops) in a situation like a dripping faucet or in the breakup of
a jet. The presence of satellite drops is undesirable in many
practical situations such as in ink jet printers and disk
atomizers. He studies the use of focused, external acoustic waves
for the control of satellite drops. If successful, this idea can
be applied to many modern technologies.